Acquisition of Microscopy Instrumentation for the Old Dominion University Interdisciplinary Materials Research Program

Utilizing funds from the Academic Research Infrastructure Program microscopy instrumentation will be acquired to augment the ongoing interdisciplinary research at Old Dominion University. The instrumentation includes a FT-Raman spectrometer, a Ramanscope microscope, an Fourier transform infrared (FTIR) microscope, and an Atomic Force Microscope base and scan heads. The instrumentation will shared between the Departments of Chemistry, Electrical Engineering and Mechanical Engineering and will be utilized for research in the following areas: Raman characterization of high-performance thermoset polymers; vibrational studies of mixed metal oxide catalysts; synthesis and characterization of thin diamond films; surface characterization of corrosion and dealloying mechanisms; surface characterization of the initial stages of porous silicon formation. Instrumentation in the microscopy area will be acquired for studies of thermoset polymers, metal oxide catalysts, synthesis and characterization of thin diamond films, the study of corrosion and dealloying mechanisms, and studies of the initial stages of porous silicon formation.